ITR: Women-friendly Environments for Learning Information Technology

EIA-0082771
Walters, Deborah
SUNY at Buffalo

ITR: Women-Friendly Environments for Learning Information Technology

There is currently an unsatisfied national demand for people trained in
information technology (IT) with a minority of the students enrolled in IT
programs being female. The proposed project is to develop an educational
approach that will appeal to women and provide them with an appropriate
learning environment for IT courses. There are four components to the
project. First, will be efforts to build upon results of investigations on
how to use technology to increase learning and decrease costs as taught
within an IT fluency course. Second, will be research on learning styles
to provide quantitative evidence to explore the validity of learning styles
in general, and the consistency of women's learning styles, particularly,
correlations between learning styles, learning environments and
performance. Third, will be research on how to improve Web-based
collaborative experiences. Fourth, will be the testing of findings through
comparisons of learning achieved in a traditional environment with learning
in an environment restructured to take into account the project's findings
and those of other researchers in the field. The specific application of
the project will be the development an a women-friendly information design
and technology undergraduate certificate program that is accessible to
students of any major. The introductory courses of the certificate program
will be designed so that students can move easily into either a traditional
computer science or media studies program.